Fisheries Management Geographical Information Systems

The development of a fisheries management Geographical Information System (GIS) for the Bering Sea/Aleutian Island (BSAI) of Alaska is proposed. During Phase I a needs assessment will be conducted, data collection and analysis will begin, requirements analysis for the fisheries managers in the BSAI region will be conducted, and a fisheries management BSAI GIS specification will be produced. Phase II will complete the data collection and analysis process and implement the GIS designed during Phase I.